CAREER: Understanding the Formation of Galaxy Nuclei

This CAREER award will enable the PI, Dr. Anil Seth, to study the formation of massive black holes and nuclear star clusters through detailed studies of some of the nearest galaxy nuclei. By combining a wide range of data sets, the PI will determine the masses of a sample of resolved nuclear star clusters in nearby galaxies, estimate the masses of a population of nuclear star clusters out to 10 Mpc, and measure the properties of galaxies that host tidal disruption event candidates. The work will subsequently address two key questions in our understanding of galaxy nuclei: (1) how and when do nuclear star clusters form?; and (2) do lower mass galaxies host supermassive black holes?

The PI will also launch an ambitious program to expand the highly successful night-time astronomy program at Bryce Canyon National Park. In particular, the PI will (1) create a ranger talk on nearby galaxies and their nuclei to be used by staff at Bryce, (2) create an astronomy outreach training program for rangers at other parks nationwide so they can replicate Bryce's success, and (3) develop a summer internship program for undergraduate astronomy students.

This work will provide critical contributions to our understanding of the formation and evolution of supermassive black holes, as well as the incredibly dense stellar clusters that lie at the centers of galaxies. It will leverage data from numerous federally funded astronomy facilities, and link with computational simulations of the evolution of the universe. Furthermore, the PI's outreach program will extend beyond Utah and Bryce Canyon to inspire national park visitors across the country to learn about the night sky.